Mathematical Sciences: RUI: Spaces of Holomorphic Functions and their Operators

The Department of Mathematics at the University of Houston will purchase, at an estimated price of $69,781, a computer system that will act as a graphics, file and compute server dedicated to support research projects in the mathematical sciences. The specific projects that will make use of and be supported by this system include: 1) Computing in nonlinear dynamics. 3) The numerical simulation of certain physical processes. 4) Shock capturing methods for reacting flows. 5) Knowledge-based algorithms.